Astronomy Research at the Five College Radio Observatory

Schloerb AST-9725951 Funds will be used for the continued support of the astronomical research, technological development, and development of human resources at the Five College Radio Astronomy Observatory (FCRAO) of the University Of Massachusetts. The research program includes studies of external galaxies, astrochemistry and planetary science. FCRAO operates the largest heterodyne focal plane array in the world and plays a major role in astronomical education. ***